CAREER: Influence of Ammonia-Based Additives to Control Multiphase Detonation Performance

Renewable fuels for power generation and transportation can broaden the U.S. energy portfolio. However, renewable fuels produce a relatively low amount of energy on a volumetric basis compared with traditional fossil fuels. Combustion is typically carried out using a subsonic process called deflagration. An alternative is detonation, which is a supersonic process. The combustion efficiency of renewable fuels can be increased using detonation, especially with additives that enhance the process. This CAREER project will conduct experiments to determine whether ammonia-based additives enhance detonation of renewable fuels. The research team will use x-ray diagnostics to examine details of fuel atomization and subsequent detonation. They will study how detonation is influenced by adding ammonia borane to the fuel to increase overall efficiency. Results of the project will help establish how renewable fuels can contribute to U.S. energy self-sufficiency. The team will collaborate with the U.S. Space and Rocket Center in Huntsville, AL to provide STEM education to rural K-12 communities and the public. The team will also integrate interactive demonstrations into the University of Alabama in Huntsville laboratory curriculum.

This CAREER project will uncover underlying physics that are key to controlling multiphase detonation using additive-enriched renewable fuels to affect secondary atomization and vaporization. Interactions of individual droplets and droplet ensembles with a traveling detonation will be investigated for renewable fuels (e.g., ethanol and methanol) with varying concentrations of soluble ammonia borane. The study will evaluate whether secondary atomization and vaporization can be altered through the addition of ammonia borane to renewable fuels to enhance detonation performance. Specific contributions include (1) quantifying rate-limiting timescales associated with multiphase detonations for both pure and additive-enriched renewable fuels to establish high-strength detonation control techniques; (2) characterizing droplet-detonation interactions to determine breakup topologies and the energy-release field; and (3) exploring droplet ensemble-detonation interactions to uncover the global impact of tailored secondary atomization and vaporization on the detonation propagation and structure. Droplet breakup processes will be captured using high-speed x-ray imaging, while the detonation energy release field provided using high-speed chemiluminescence; simultaneous high-speed Schlieren will be used for visualization of the detonation wave structure. Ultimately, the physical insight of the governing physics for multiphase detonations garnered from this research will enable the development of potential detonation control approaches using renewable fuels.